Set Covering Problems in Combinatorial Optimization

This research addresses an important set of questions arising
in optimization of industrial systems for network design,
data classification, facility location, and scheduling.
A fundamental problem arising in all these areas is called
set covering. Set covering problems range from easy to very
difficult and it is the more difficult ones that form the focus
of this research. The problems studied are approached through
rigorous and mathematical methods.

This research studies several approaches to the design of
algorithms for set covering problems arising in the areas of
network design, facility location and data classification, mostly
based on mathematical programming techniques. The focus
is on the study of complexity and approximability of set covering
and its extensions in network design and classification, including the
design of general algorithmic techniques and the analysis of
mathematical programming formulations and relaxations. A special
emphasis is made on set covering problems defined on directed
graphs, which is an area where very few results are available in
the literature.